Microcomputer Based Data Acquisition and Analysis for Undergraduate Physiology Laboratories

Modern methods of data acquisition and analysis are being provided to undergraduate physiology laboratories. This equipment is not only enhancing existing laboratory experiments, but is also increasing the number of experiments performed while providing quantifiable data and access to software commonly used in scientific analysis. Physiological transducers are attached to a commercially available data acquisition system that is connected to a personal computer. Each system enables two student groups to utilize one computer system. Software simulations and mathematical models are also used to enhance comprehension. The integration of computer-based acquisition equipment should reduce the frustration level that many students experienced with the previous equipment. The university will contribute an amount equal to the award.